PYI: Purposive and Qualitative Active Vision

This first-year Presidential Young Investigator Award will support Dr. Aloimonos' work in active vision and navigational reasoning. His principle goal is to build robotic systems with robust, real-time visual capabilities for accomplishing specific navigational tasks such as moving object detection by a moving observer, object tracking, and obstacle avoidance. Dr. Aloimonos also intends to continue his research in robust scene analysis, visual learning, parallel computation, path planning, and other related topics.